Mathematics Academy for Inner-City Middle Schoolers at Temple (MAST)

9552931 Schiller Temple University will initiate a 4-week, commuter Young Scholars project to serve forty entering ninth graders of high potential from inner-city schools of Philadelphia during the summers of 1996 and 1997. The disciplinary focus is mathematics with a particular emphasis on discrete mathematics, using computers and graphing calculators as tools in the analysis and solution of problems. The activities planned will include individual and group work, group research projects, field trips, and interaction with student role models, mentors, and professionals in mathematics-related areas. The participants will be involved in ten academic-year follow-up meetings during which they will present their research and explore other problems.